High-Speed Distributed Storage Management

The goal of this research is to develop a high-speed distributed storage system that provides a general purpose file system with integrated storage and retrieval of large data objects, such as digital audio and video, at guaranteed data rates. Applications of such a system range from visualization of scientific computations to real-time recording, editing and play-back of color video. Support for integrated access to continuous media such as digital audio and video is difficult for current computing systems. They lack the necessary capacity to provide data at a sufficient rate, and do not support the necessary end-to-end performance guarantees. The interest in fields such as scientific visualization require that this be addressed. The design, called Swift, addresses these issues by providing a scalable architecture capable of exploiting current and future technologies. In particular, to provide high performance it relies on the rapidly increasing performance of communication networks to use many storage devices in parallel. It will provide the end-to-end performance guarantees necessary for continuous multimedia through negotiations with the schedulers of each of the cooperating components. Its distributed nature will allow resource sharing according to the needs of its clients; and, through the use of redundancy, it will provide a high degree of fault tolerance.